Charaterization of L-myc Expression and analysis of the Homozygous Null L-myc Phenotype

9304602 Hatton Myc family genes are transcription factors that are likely to regulate genes important in growth control and differentiation. Recently, I have been successful in generating a germline null L- myc mutant mouse derived from gene targeting and embryonic stem cell methodology. The working hypothesis is that since myc-family gene expression changes at key development transitions in cultured cells and in the organism, absent L-myc expression will lead to the aberrant expression of phenotypic markers of differentiation. In this proposal, questions concerning the role of L-myc in differentiation and growth control are addressed in vitro using cell culture systems and during development in vivo using homozygous null L-myc mutant embryonic stem cell lines and a null L-myc mouse mutant. Changes in L-myc expression at key developmental transitions would lead to altered morphology in the developing or adult mouse, or to changes in the expression of genes regulated by L-myc. The phenotype of the null L-myc mutant mouse will be characterized. Experiments will be performed to test the hypothesis that L-myc is an essential gene during embryonic development. Heterozygous null L-myc mice will be mated to each other and the offspring will be genotyped. If no homozygous null L-myc mutant mice are born, embryos will be harvested at different gestational stages and be prepared for histological examination. In this specific aim, the goal is to identify changes in morphology in developing tissues and organ systems by histological analysis. In order to characterize further the expression pattern of the c-, N- and L-myc genes in early embryonic development, the expression of L-myc will be examined in the earliest differentiation event in the mouse embryo: the formation of trophectoderm and inner cell mass. Blastocyst and later developmental stages will also be examined by in situ hybridization. The earliest time in development at which myc genes are expressed i n a cell type specific manner will be identified. Another important outcome will be the potential correlation of the phenotype with the expression pattern of L-myc. The goal of this section is to identify and examine changes in L-myc expression in developing tissues in order to identify changes in the expression of gene products in the absence of L-myc expression in the null mutant. The characterization of L-myc gene expression and phenotype of a null L-myc mouse will lead to a significant advancement in our understanding of myc gene biology. ***